Geometric Problems in Graphics, Databases and Networking

Geometric problems arise in many different disciplines. In some areas, such as computer graphics, which inherently deal with geometric shapes, geometric problems of computational and combinatorial kind are fairly natural. In other areas, such as networking, geometric formulations or methods are rarely employed. Nevertheless, some networking problems of recent interest can be cast quite naturally in geometric terms, and addressed using computational geometry methods. This project identifies some important problems in graphics, databases, and networking that can benefit from computational geometry methodology. These problems include shape and distribution-sensitive geometric algorithms for graphics, multi-attribute histograms in databases, and study of multi-dimensional packet filters in high-speed networks.